Self-Consistent Field Theory for Correlated Electrons in Solids

9520636 Bickers Computational research will be conducted on the properties of correlated electrons in solids within the framework of self-consistent field approximations. Such approximations constitute the natural generalization of Hartree-Fock theories to systems with strong interactions and large electronic fluctuations, including the cuprate high- temperature superconductors. The self-consistent field approach provides a semi-analytical alternative to numerical techniques like exact diagonalization or simulation. The research proposed concentrates on the extension of the self- consistent field approach to (a) lattice models with nontrivial unit-cell structure, including multi-orbital models describing the cuprate superconductors; and (b) lattice models with infinite-range Coulomb interactions. In addition, a program of study is proposed to improve the treatment of nonlocal vertices in general two-particle correlation functions. %%% New computational techniques will be investigated to deal with systems of electrons which interact strongly and for which existing methods are not applicable. Of particular interest, these new techniques will be applied to the problem of understanding high-temperature superconductors. ***